Inservice Program in Biotechnology for Secondary Life Science and Agriculture Education Teachers

9355652 Klyczek This project will provide an inservice program in biotechnology for both secondary life science and agriculture education teachers through a variety of workshop settings. The intent is to address the local, state, and national recommendations to increase the science aspect of agriculture and to create opportunities for agriculture education and life science teachers to work together. The program will provide participants with new scientific knowledge related to biotechnology, specifically including: gene cloning, tissue culture, DNA analysis, and genetic modification of plants and animals; laboratory experiences that illustrate new techniques in biology; information that is important from a consumer point of view, e.g. practical applications of biotechnology in agriculture and medicine; opportunities to share teaching experiences; successful demonstrations, teaching strategies, and laboratory experiences; and opportunities to discuss public concerns and ethical issues related to biotechnology. The project will reach a minimum of 300 teachers in Wisconsin, Minnesota, and South Dakota.